Mechanics of PZT/Silicon Interfaces for MEMS Reliability

0000197
Pelegri
In this study, effects of anisotropy and microscale on materials properties will be incorporated in a model to predict the interfacial reliability of MEMS devices. The goals of the proposed study are to: a) develop innovative testing methodologies to measure interfacial fracture toughness at the meso and microscale levels, b) experimentally demonstrate the loss mechanisms and mode mixity effects on the structural integrity of PZT/Silicon interfaces, and c) formulate a law for the energy release rate and the fracture toughness that account for the materials anisotropy at the PZT/Silicon interface. In addition, viscous loss mechanisms for the PZT material and the nature of structural losses for the silicon will be investigated.

In the educational plan the PI proposes to increase and modernize student involvement in the ongoing research, within and outside the Mechanical and Aerospace Engineering Department, by promoting research transfer into classrooms, and simultaneously increasing the number of women represented in engineering. To increase the gender diversity, the PI will collaborate with Douglass College of Women. Among other activities, a seminar series, with distinguished women in the field, will be held in order to attract more women and minorities in engineering. The PI proposes to develop a new course in which she will promote state-of-the-art experimental techniques, modern principles and methods of analysis used in the study of MEMS. The syllabus of the course will be closely related to the proposed program in order to create a direct link between research and teaching.
***